Summer Research Experience Site on Environmentally Benign Products and Processes

9876959
SUNY Buffalo
Ashish Gupta

This proposal requests funding to support ten (10) undergraduate students per year, for five
consecutive years, to attend a ten-week summer research site in the area of environmentally benign
chemical processes and products. This REU site will complement a research and education initiative
launched recently by SUN'Y-Buffalo's Department of Chemical Engineering, in which high-impact
developments from chemical engineering science will be channeled into a significant regional and
national advancement of waste minimization for pollution prevention. The proposed program encompasses recruitment of traditionally underrepresented student talent, novel research experience in
environmental technology, a lecture series on ethics in research, interdisciplinary interaction with
regional waste management and environmental remediation activities, and significant industrial
cooperation. The program is strengthened by dedicated advising and assessment of students' careers in
research. The Department of Chemical Engineering will provide 10% matching support in the form of
travel monies for the research experience participants.